Gravitational Lensing: Recent Progress & Future Goals (Conference) to be held on July 25-30, 1999 in Boston, MA

Conference on gravitation lensing: recent progress and future goals

Teresa Brainerd

Dr. Brainerd is conducting a conference titled "Gravitational lensing: recent progress and future goals." The field of gravitational lensing is quite active. The field touches many subdisciplines in astronomy. This conference will discuss the implications of recent investigations as well as possible future developments. The conference format will consist of 45 minute invited review talks, 30 minute targeted talks, 20 minute contributed talks, as well as contributed poster presentations. Proceedings of the meeting will be published in the Astronomical Society of the Pacific conference series. The necessary conference facilities are in place and provided by Boston University. The dates for the conference are 25 July through 30 July, 1999 at Boston University, Boston, Massachussets.